International Symposium on the Interphase; The Adhesion Society; Williamsburg, VA.; February 21-26, 1993

This grant provides partial support for a major international symposium dealing with the interphase in adhesives, coatings, and composites. The meeting will take place in Williamsburg, VA., from 21-26 February 1993.